The Role of Rab GTPases and V-H+ ATPases in Membrane Traffic

9507494 Cardelli The long term goal of the project is to define the molecular mechanisms which regulate the biosynthesis and function of lysosomes, organelles that function to degrade extracellular and intracellular material and that play an important role in cellular metabolism. In previous studies the biosynthesis, processing and targeting mechanisms for lysosomal hydrolases have been characterized in the simple eukaryote, Dictyostelium discoideum, an organism well suited for these studies because of the ease in which it can be manipulated genetically and biochemically. As part of the aims of this proposal, some of the proteins that are enriched in lysosomes will be characterized. One of the identified proteins is a subunit of an enzyme (V-H+-ATPase) responsible for acidifying the lumens of lysosomes and endosomes. The other protein, Rab4, is a member of a large family of small GTPases involved in vesicular trafficking. Rab4 and the proton pump are also highly enriched in the contractile vacuole (CV) complex and preliminary data suggest that these proteins regulate the function of this organelle and the endosomal pathway. In the present application, molecular genetic techniques will be used (gene disruption, overexpression and antisense RNA expression) to create cell lines that either do not express these proteins or express mutant versions of these proteins. These cell lines will be analyzed biochemically to determine how the lysosomal/endosomal and CV system functions under conditions where acidification is suppressed and vesicular trafficking may be altered. Our functional tests will include measuring; 1) the rate of processing and transport of lysosomal hydrolases, 2) the percentage of newly synthesized precursors that are appropriately targeted, 3) the rate of endocytosis, phagocytosis, and secretion and 4) if the CV is altered in function. Together these approaches will provide relevant new information on the regulation of endosomal/lysosomal and CV function. %%% This is a project dealing with the definition of the molecular mechanisms regulating the formation of endosomes and lysosomes; organelles that function to degrade extracellular and intracellular biological material. Very little is now known concerning how lysosomes are formed and much remains to be learned concerning how they function to regulate a wide variety of cellular processes. These studies are conducted in a simple eukaryotic system, Dictyostelium discoideum, because sophisticated genetic and biochemical approaches can be applied. In earlier studies, two proteins have been identified that are associated with lysosomes and endosomes; these proteins may play an important role in the structure and function of these organelles. One of the proteins, Rab4, functions in mammalian cells to regulate the trafficking of membranes along the endosomal pathway (the route extracellular material takes to reach lysosomes) while the other protein, the proton pump ATPase, functions to acidify lysosomes and endosomes. Interestingly, in this organism, both of these proteins are also associated with the membrane system termed the contractile vacuole. This organelle is responsible for pumping out water and functions at the cellular level much like a kidney functions in humans. This is a proposal to use genetic and biochemical approaches to define the role of the proton pump and Rab4 in the assembly and function of endo-lysosomes and the contractile vacuole. Together, these approaches using this simple eukaryotic cell will provide relevant new and important information on the regulation of cellular organelles critical for normal cell function. ***